Theoretical Particle Physics, Astrophysics, and Cosmology

The research supported under this proposal touches cosmology,
observational astronomy, aspects of particle physics, plasma physics,
high energy astrophysics, black holes and computational physics.
Techniques will be developed to best exploit future high precision data
on the cosmic microwave background radiation and irregularities in the
distribution of galaxies. The evolution of galaxies and some aspects of
gamma ray bursts will be studied using the Sloan Digital Sky Survey and
Keck telescopes. Theoretical work will attempt to elucidate the
properties and distribution of dark matter, the origin of the excess of
matter over antimatter in the Universe, the underlying physics of
gamma ray bursts, the source of the highest energy cosmic rays, the
process by which large black holes form and accrete matter, and
selected issues in particle physics.

The work will help pin down the fundamental cosmological parameters such
as Einstein's cosmological constant, the curvature of the
universe, and the matter content of the universe. Conditions in the
Universe in the instant after the Big Bang will be inferred. The
mechanism by which the Big Bang developed and then ended will be
elucidated and the "Inflationary Scenario" will be tested. Novel
properties of space-time, such as extra dimensions or intrinsically
quantum mechanical dimensions whose distances cannot be described by
ordinary numbers, are inherent in string theory; it is an important
challenge to find ways to discover these hidden features of the
Universe, if they are there. Identifying and measuring the dark matter
and dark energy, and answering the questions above, are prerequisites to
deducing the fundamental theory of nature and to understanding why the
Universe is hospitable to life at this or any epoch in its history.